High Resolution Simultaneous Tomographic Inversion for Attenuation and Velocity Structure at Loma Prieta, Using Local Earthquakes

This research is to use seismic data from permanent and the new NSF/IRIS PASSCAL instruments for over 5000 aftershocks associated with the Loma Prieta earthquake sequence to derive high resolution (on the order of hundreds of meters) tomographic images of P- and S-wave velocity and attenuation along a 55 X 45 km region near the San Andreas fault. Initially, separate inversions will be examined and correlated with known geologic and geophysical observations. A joint inversion, incorporating velocity, attenuation and gravity will be developed requiring the resulting models to reflect what is known about the model through independent geophysical observations. This research is a component of the National Earthquake Hazard Reduction Program.